Comet/Solar Wind Interactions

The recent missions to comets Giacobini Zinner and Halley have resulted in a deeper understanding of the major physical and chemical processes involved in the solar wind interaction with a comet. The wealth of in-situ data necessitates a new level of theoretical modeling. Dr. Flammer will study a number of outstanding issues in cometary physics which emphasize both macroscopic and microscopic processes. The research goals are to develop theoretical models to: (1) Study how the cometary pickup ion distribution function modifies the global solar wind flow characteristics near a comet over a wide range of heliocentric distances; (2) Study both the macro and micro physics of the cometary ionopause and inner shock; (3) Study the interaction of the solar wind with a comet at large heliocentric distances; (4) Study the ion chemistry outside the cometary ionopause; and (5) Study the interaction between dust and plasma in the cometary environment. Dr. Flammer will use analytic theory, numerical techniques, and plasma simulation codes. These investigations will make use of the existing cometary data and provide insight for future cometary missions.